Micromechanics - Based Design of Flexible Composites

This research assesses the feasibility of achieving a desirable property balance theoretically on the basis of micro-mechanical models of short-fiber composites. With solutions to these models, parametric studies of the effects of the relevant microscopic variables on composite properties will be carried out, and conclusions regarding the feasibility will be drawn. There are numberous commerical applications which demand highly flexible, ductile materials which still possess adequate strenght and creep resistance. By altering the fiber-matrix interface, as well as the fiber matrix materials, fiber aspect ratio and volume fraction, various trade-offs between flexibility and strength may be achieved.